From Neurons to Circuit Dynamics: Mechanisms of Fast Rhythm Generation, Initiation, and Termination

This project investigates how the brain generates the fast, precisely timed rhythms that underlie everyday actions such as speaking. Although these rapid neural rhythms are essential for health and behavior, scientists still do not understand how vertebrate brains produce their fastest motor patterns. The research team will use cutting edge brain recording technologies and artificial intelligence (AI)–assisted modeling to study a simple vertebrate circuit in the African clawed frog, whose brain can produce natural “singing” patterns even outside the body. This preparation provides an unique view of how groups of neurons coordinate their activity with millisecond precision. By revealing general principles of how vertebrate brains generate fast rhythmic behaviors, the project will advance fundamental neuroscience, support the development of AI tools for analyzing complex biological signals, and contribute to national health by informing future approaches for understanding neurological and psychiatric disorders linked to disrupted fast brain rhythms. The project also promotes STEM education through outreach in prisons, K–12 classrooms, and community programs, and provides research training for students at multiple career stages. This project advances NSF’s priorities in Artificial Intelligence.

The project aims to define the neural mechanisms that generate fast vertebrate motor rhythms using the African clawed frog (Xenopus laevis) vocal central pattern generator (CPG), which produces highly stereotyped ~60 Hz activity with millisecond precision. An isolated brain preparation that generates fictive calls for hours enables simultaneous high density electrophysiology, targeted pharmacological perturbations, and population level analyses. The investigators hypothesize that a stereotyped motoneuron recruitment sequence drives the call amplitude ramp, while spike synchrony required for fast rhythm emerges from a feedback loop in which motoneurons directly participate—a novel feature not well understood among vertebrate motor circuits. The research will quantify recruitment sequences, synchrony, and population state transitions and integrate these data with AI augmented computational models to test mechanistic hypotheses in silico. Together, these advances will contribute to new principles of neural population dynamics and motor control.